Mathematical Analysis of Vortex Sheet and Water Wave Motion

Proposal DMS-0400643

Title: Mathematical analysis of vortex sheet and
water wave motion

PI: Sijue Wu, University of Michigan

ABSTRACT

The vortex sheet problem serves as a prototype for the evolution of
vorticity in fluid flows. One can think for example of the wake of an
airfoil as a typical problem
of this type. This problem can be described by the incompressible Euler
equations, where
the initial vorticity is ideally a finite Radon measure supported on a
curve. The issue is to determine
the evolution of this curve. A further assumption that the vortex sheet
remains a
curve at a later time leads to the Birkhoff-Rott equation. The PI's
initial study
shows that a vortex sheet
in general can not be a curve of reasonable regularity. On the other
hand, Delort's result shows that vortex sheet
fits as a weak solution of the Euler equation (for initially
non-negative vorticity). However weak
solutions seem to be a class too big to describe the
specific nature of the vortex sheet evolution. The proposed research
focuses on further pin point the
nature of the vortex sheet evolution, through studying similarity
spiral solutions, understanding the viscosity effects and
the evolution of vortex layers.

Water wave is one of our most familiar experiences in daily life. A
mathematical description
is the incompressible, irrotational Euler equation, defined in the
moving water domain. Study of water
wave can be traced back to more than 150 years, in which the PI
recently established
the well-posedness of the problem locally in time, that is, the wave
will evolute
without breaking for a finite time period, from
any initially non-self intersecting wave surface. The proposed research
focuses on the large time behavior:
the global existence of smooth solutions, the wave breaking-- the
mechanisms that cause the
wave breaking and breaking profiles. The proposal is to initiate from
existing theories on limit equations.
Through comparisons of the full water wave equation with the limit
equations, the
PI aims at developing enough
machinery and understanding
that lead to further research with greater generality.

The proposed research will further our understanding of the nature
phenomena such as the water wave
motion and wave breaking, the mixing of fluids, separation of boundary
layers, generation of
sounds and coherent structures
in turbulence models. It will have a direct impact on the science and
technology that influence our daily life.